RIA: Scalable Technologies for Highly Parallel Database Management System Implementation

RIA: Scalable Technologies for Highly Parallel Database Management System Implementation The Federal HPCC Initiative calls for the development of scalable parallel computing systems capable of sustaining trillions of operations per second on very large datasets. In meeting this challenge, analytic and experimental investigations of scalable parallel processing techniques required for data management systems have been identified as critical needs for many grand challenge studies. This research is aimed at studying these issues, in particular, to investigate scalable storage structures and efficient query processing techniques. The work involves both theoretical analysis and system implementation. The expected results of this project include: (1) a multidimensional distributed file structure that facilitates an efficient environment for handling very large data sets; (2) an efficient join strategy with dynamic load balancing capabilities for the multidimensional data declustering environment; and (3) an effective query optimization technique that takes the costs of load balancing into consideration. Products of this investigation include an advanced query optimizer that serves both as a vehicle for feasibility demonstrations, and a platform for future database machine development. The significance of this research is in advancing the scalable software technologies required for the implementation of large parallel database systems. The results will have an impact on providing efficient solutions to the grand challenge problems.